Heat Capacity Study of Hydrocarbons Adsorbed on Graphite

Using ac calorimetry, heat capacity measurements will be carried out on a series of different hydrocarbon films adsorbed on graphite. A main focus of the work proposed is the study of the melting transition of two-dimensional (2D) solids. Using a set of different hydrocarbon films we shall systematically study how the nature of the melting transition depends on the size and shape of the molecules which constitute the 2D solid. This systematic approach is of interest because recent theoretical results indicate that 2D melting is strongly influenced by molecular size and shape. We have completed the first stage of this research with their study of ethane films. Following up some preliminary results on ethane, we shall study the melting of thin hydrocarbon multilayers as well as the behavior near the bulk triple point of small bulk hydrocarbon crystallites adsorbed on graphite. In the high coverage regime they purpose is to determine whether exfoliated graphite can be used as substrate for studying surface melting.